FRG: Topological Invariants of 3 and 4-Manifolds

DMS-0244460
Paul Melvin

This is a Division of Mathematical Sciences Focused Research Group
(FRG) award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02129/nsf02129.htm

The goal of this proposal is to find purely topological (continuous or
combinatorial) definitions of the invariants arising out of
Seiberg-Witten theory. These include the basic classes for
4-dimensional manifolds, and the Oszvath-Szabo Floer homology for
3-manifolds. Recent progress, in particular the striking results of
Ozsvath and Szabo in the last two years, has brought Seiberg-Witten
theory seemingly close to topology, and a concerted effort by this
group may be able finish the task.

This proposal falls under the larger topics of gauge theory and string
theory, which are closely connected to and motivated by theoretical
physics, in particular the attempt to unify the forces of nature.
Low-dimensional bordism theory is the mathematical analogue of n+1
dimensional quantum field theories, i.e. an n-dimensional space and
1-dimensional time correspond to an (n+1)-dimensional bordism between
two n-dimensional manifolds. These bordisms can have extra structure,
e.g. contact structures in odd dimensions and symplectic structures in
even dimensions. Progress in understanding the mathematical
underpinnings of this sort of physics feeds back into better
understanding of the physics.